Acquisition of a New Electron Microprobe at the University of Michigan

9911352
Essene

This award provides 67 percent partial funding support for the acquisition of a new electron microprobe to be installed in the Department of Geological Sciences at the University of Michigan. The University is committed to providing the remaining funds necessary for the acquisition. The new microprobe will be operated as part of the University of Michigan's Electron Microbeam Analytical Laboratory, ensuring adequate technical support and access for all campus researchers. The electron microprobe is an analytical tool that focuses a beam of energetic electrons on a sample surface, generating characteristic X-rays from the elements in the sample. The technique produces precise chemical composition analyses of unknown samples with good spatial resolution in the micron range. Anticipated applications at the University of Michigan include research in earth sciences, science of materials, chemistry, engineering and dentistry.
***